Doctoral Dissertation Improvement Grant: Markets, Mining And Commercialization In The Colonial Andes

Research into the relationships between markets and states is a pressing issue for the social sciences, notably in an effort to understand the roots and ongoing expansion of an increasingly globalized economy. Archaeology is uniquely suited to provide a deeper historical context to this research, by studying how goods have been exchanged over the centuries and illuminating the long-term trajectories of past economic systems. With the support of his advisor, Dr. Brian Bauer, doctoral candidate Douglas Smit will examine the relationship between emerging markets, colonial states, and indigenous labor in Colonial Peru (AD 1572-1824). Specifically, this research will investigate the role of indigenous labor in the colonial markets of Huancavelica, the largest mercury mine in the Americas and one of the critical centers of early globalization between the 16th and 18th centuries. More broadly, this project will build relationships with descendant indigenous communities to assist their ongoing application for Huancavelica to be classified as a UNESCO World Heritage Site. The project will strengthen cross-cultural academic relations through the inclusion of Peruvian university students, including instruction on advanced analytical techniques in archaeological science. Results will be published in English and Spanish, presented at conferences in the United States and Peru, and presented in a museum exhibition in association with the Peruvian Ministry of Culture. Consequently, this project presents an excellent opportunity to publish and initiate interdisciplinary and international dialogues beyond the traditional bounds of academia, further underscoring the role of archaeological research as an essential tool for understanding the role of markets in the past and present.
The central question of this research asks how the growth of colonial markets over three centuries impacted the social organization of indigenous laborers and their larger political relationships with the Spanish colonial state. The investigators will conduct excavations at the colonial ruins of Santa Barbara, the central settlement for indigenous laborers at the mines of Huancavelica. Initially, the Spanish colonial state forced indigenous communities to supply labor for the mines, but as Huancavelica grew as a commercial center, new economic systems such as wage labor and commodity markets increasingly dominated the region. As a critical node for trade networks that extended from Bolivia to the Peruvian Coast, and eventually across the Atlantic and Pacific Oceans, Huancavelica presents an ideal location to compare and contrast distinct yet overlapping economic systems over an extended time period. Through the use of advanced analytical techniques, such as laser ablation-inductively coupled plasma-mass spectrometry (LA-ICP-MS) and portable X-Ray Florescence (pXRF), this project will uncover past exchange networks by sourcing ceramics and stone tools. By tracing how household goods were produced, traded, and eventually acquired by indigenous laborers in the midst of a rapidly developing market system, this project will reveal the broader impacts of economic change on social and political relationships.